Equipment in Support of Parallel Processing Research

A hypercube parallel processor will be provided for researchers at Washington University for the Department of Electrical Engineering and Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area(s) of: 1. Developing parallel hierarchical (circuit, gate, system) simulation system for use in computer aided design. 2. Research and implementation of a parallel iterative algorithm which performs maximum likelihood estimation of a multi-signal source in a noisy environment. 3. Developing software methodologies for concurrent system design and debugging.